The Electrochemical Polymerization of Bis-2-Pyrrolyl Conjugated Monomers to Form Highly Conducting Polymers

9307732 Reynolds This award is made in the Advanced Materials and Processing Program in support of the collaborative research of Professors Reynolds and Katritzky at the University of Florida. Support is provided by the Divisions of Chemistry and Materials Research. Novel bis-2-pyrrolyl conjugated monomers containing substituted benzenes, carbazoles and fluorenes as internal units will be synthesized and electrochemically polymerized to highly conducting polymers. The main goal of the research is to develop a fundamental understanding of the electropolymerization and film-deposition processes that occur during oxidative polymerization and to direct the electrosynthesis to form polymers with enhanced properties. %%% Polypyrroles with higher degrees of long range order will be synthesized which will have higher electrical conductivities and improved environmental stabilities relative to presently available polymers. These aspects are important in electrostatic charge dissipation and electric field grading applications. ***